Acquisition of a High Field Nuclear Magnetic Resonance Instrument

High-field nuclear magnetic resonance (NMR) spectroscopy enables chemists to study the structure of molecules in a non-destructive manner. Instrumentation of the type needed to make NMR measurements enhances the research environment of the department involved. The Department of Chemistry at Furman University will purchase a high-field NMR spectrometer with multinuclear broad band capabilities with support from the Chemistry Shared Instrumentation Program. The instrument is needed by members of the Chemistry Department for research in the following areas of chemistry: 1) metal olefin bonding 2) solid phase synthesis of glycopeptides 3) uncatalyzed hydromagnesiation of carbon multiple bonds 4) thermal and photochemical behavior of amino acid complexes of Cr(III) and Rh(III) This NMR spectrometer will be a significant addition to the Department's instrumentation capabilities, enhancing both current and future research efforts. The instrument's acquisition will also have a dramatic impact on Furman's continuing efforts to attract the very best students to careers in chemistry (over the past five years, 48% of the Department's undergraduates have gone on to chemistry graduate school, with 41 Furman students presently in Ph.D. programs).